Development of a Modern Undergraduate Laboratory in Wave - Related Phenomena

In view of the rapidly growing applications of ultrasound and optics (lasers in particular) in research, industry, and medicine, it is imperative to give students some hands-on experience with these techniques. Ultrasonic and optical waves are alike in the sense that they both belong to wave-related phenomena. This project funds the purchase of the equipment necessary to develop a modern undergraduate laboratory in wave-related phenomena, which can eventually replace obsolete equipment in the Mechanics and Optics Laboratory. In this laboratory, four novel experiments that cover basic linear and nonlinear wave phenomena are taught. They are (1) interaction between light and sound; (2) ultrasonic Doppler effect used in medicine; (3) radiation force and optical tweezers; and (4) chaos and solitons. The primary purpose of these experiments is to teach students physical principles. Students also learn how to apply these principles to challenges in real life. Additionally, students have the opportunity to learn computerized data-acquisition and analysis techniques, which are essential for success in the present-day workforce.